Theory for Community Dynamics in Spatially and Temporally Variable Environments

Peter Chesson

DEB-9981926

Mathematical models of species competing in space and time will be
studied using a combination of analytical, simulation, and numerical
methods. Three specific sorts of natural community will form foci of
this work: annual plants with persistence seed banks (especially those
found in arid environments), perennial herbs that spread spatially by
vegetative means, and long-lived perennial organisms that do not have
vegetative spread but have multiple reproductive events in the life of
an individual (iteroparity). The research will examine how life-history
traits, such as those defining these different communities, interact
with environmental variation in space and time and affect coexistence of
species and therefore affect maintenance of species diversity. In
addition to the features distinguishing the above systems, important
factors are expected to be mode of dispersal of offspring, distance of
dispersal, and spatial and temporal scales of competition between
individual organisms. This work will extend to the spatial domain
previous findings on the role of temporal environmental variation and
its interactions with life-history traits on the maintenance of species
diversity.